Valuing Literacy: The Science and Mathematics Value Inventory (SaM-VI)

This project introduces the Science and Math Values Inventory (SaM-VI), a comprehensive inventory that determines the value undergraduate students place on science and math literacy. Although this instrument is useful in examining educational outcomes for all students, the main aim is for those who do not major in STEM fields. The SaM-VI provides a mechanism to review, modify, and enhance interdisciplinary math/science curricula. More importantly, this inventory supports national curricular reform and improved literacy in mathematics and science by providing universities and colleges a means to determine if their general education math and science programs have truly made a difference in the lives of students. It also reinforces the constructivist tenet that the effective application of knowledge depends not only on how much knowledge students have and how they organize it, but also on the feelings they associate with that knowledge and especially the value they place on it.

The major component of this project is the development of the Science and Math Values Inventory (SaM-VI). This inventory investigates how (or if) the value students place on math and science literacy changes following formal instruction. This project has five significant outcomes. The development of the SaM-VI allows: (i) the assessment of the relationship between the perceived value of science and math literacy and achievement, (ii) the assessment of longitudinal changes in students' perception of the value of science and math literacy, (iii) the examination of gender-related differences in perceived value of science and math literacy, (iv) the exploration of the impact of ethnicity on perceived value of science and math literacy and, (v) the dissemination of an assessment tool that 35 partner institutions plan to use to evaluate curricula.